Host-Level Protocol Support for Interoperable Distributed Computing

This research project explores an emerging and potentially
important area of distributed computing: interactive distributed
applications that involve mobile users with disparate network
connections and computing devices. Specifically, the project
addresses the design of group communication protocols for
reliable multicasting, event synchronization, and leadership
control. Key issues include how such protocols adapt to network
dynamics produced by mobile nodes and how they accommodate
performance differences among network connections and hardware
platforms. The project investigates the integration of three
host-level techniques to support group communication: enhanced
network interface card functionality, new operating system
services, and user-level/proxy-based protocols. In addition to
analysis and simulation, the project involves extensive
experimentation on a research testbed. Expected results include:
new protocols and implementation techniques for use by software
developers; performance data on the merits and deficiencies of
various development techniques; and a framework for developing
and testing new applications. On a broader scale, improving the
underlying support for interactive distributed applications
enhances their performance and makes them more accessible to
domains such as education, science, and public safety.